Single-Molecule Spectroscopy

9414515 Berman This international collaboration between Berman and FSU scientist Kilin is to develop the theoretical tools to study the single spectroscopy of impurity atoms in solids. Recent experimental advances coupled with the theoretical research supported by this grant will lead to a greatly improved understanding of the interaction of single molecules with optical fields of arbitrary intensity in solid hosts. ***